CAREER: Non-Equilibrium Transport and Disorder Effects in Quantum Wires and Related Systems

This CAREER award combines research on low-dimensional conductors with
educational activities for university and high-school students.

Since future nano-devices will operate in the presence of time-dependent fields and in
other far-from-equilibrium conditions, an understanding of non-equilibrium transport on
the nanoscale is crucially important. Thus, a realistic description of quantum wires raises
the difficult problem of non-equilibrium effects in the presence of electron interactions.
Solids always contain impurities, and hence an understanding of mesoscopic transport is
impossible without an understanding of the interplay of disorder and interaction. The
research will employ a combination of systematic analytical and numerical
methods to investigate interaction effects in far-from-equilibrium transport in quantum
wires and the interplay of interaction and disorder in low-dimensional mesoscopic
conductors. The research will focus on the following problems:
1. Non-equilibrium transport in Luttinger liquids. In the ratchet effect, a dc current is
generated by an external ac field in a spatially asymmetric system. This effect is expected
to help in the development of future nano-diodes, nano-switches, and nano-transistors. The
existing theoretical studies of the ratchet effect have focused on Fermi-liquid systems and
simplified models of non-interacting electrons. However, the electronic interaction is
significant and results in the formation of a Luttinger liquid in quantum wires. The
proposed research will include a systematic investigation of the ratchet effect in Luttinger
liquids using the Keldysh technique, bosonisation, renormalization group, large-N mean-field
approach, and numerical methods.
2. Spin transport far from equilibrium. There is growing interest in the physics of spin
transport in mesoscopic systems. An important part of this development is the investigation
of possible ways to produce a spin current. The proposed research will include a theoretical
study of the spin ratchet effect in Luttinger liquids.
3. Transport in quantum Hall systems. Recent experiments on interference and tunneling
of fractionally charged quasi-particles raise new fundamental questions concerning quasiparticle
transport which cannot be answered by standard methods. The proposed research
will combine an approach which treats a 2D electron gas as a system of interacting
quantum wires with the bosonization procedure and with the methods developed in the
theory of soft matter systems with quenched disorder. The approach can help to solve the
problem of QHE plateau transition.

Educational activities will include the development of an introductory
course in nanoscience targeted primarily at freshmen; integration of recent developments in
the fields related to the grant into the regular physics curriculum; participation of
students and postdocs in research and related activities such as a journal club; and outreach
to Providence inner-city high schools. An internet-based high-school-level tutorial will be
prepared on the basis of the freshmen course.

On intellectual grounds, the proposed research will advance the knowledge about
strongly correlated electronic systems. The basic laws of quantum mechanics have been
known for a long time, but emergent properties of many-body systems still constitute a
field full of puzzles and surprises. Progress in this field is of fundamental importance. The
proposed research will benefit the emergent field of far-from-equilibrium quantum many-body
systems. The proposed work will employ analogies between low-dimensional electron
systems and soft condensed matter and thus bridge the existing gap between hard and soft
matter physics. The proposed research will also have broader impacts. A theoretical
understanding of transport in quantum wires is critical for nanocircuitry. Thus, the results
of this proposal will be important for the multi-disciplinary nanoscience community. The
education component will advance discovery and understanding of nanoscience while
promoting teaching, training and learning at different levels and broaden the participation
of underrepresented groups.

Non-technical abstract:

The research focus is on the fundamental properties of materials in confined geometries as are found on the nanoscale. At these scales the theories we usually use have to be modified to account for confinement and this brings issues like disorder and interactions between electrons to the forefront. The research will study these fundamental issues that may form the basis for future nanoscale devices (nanoelectronics). The principal investigator will develop and teach an introductory course on nanoscience for college freshmen. He will also participate in outreach to high school students through the internet and in person. Research results will be integrated into course material.